Presidential Young Investigator Award: Robot Motion Planning

An investigation of robot motion planning will be expanded using configuration space. Current planning methods do not take into account the possibility of gross errors in the environment model, such as unmodeled obstacles or surface defects. These kinds of problems are quite common outside of well-controlled environments such as laboratories and factories. The challenge is to detect the error as early as possible and to undertake corrective action without requiring complete re-planning. Further, this approach will be extended to planning to deal with multiple moving objects whose motions are not completely known in advance. The idea is to be able to guarantee that there exists a plan that achieves the goal as long as the other objects move within their expected bounds. Both of these extensions will build on the basic idea that to plan ahead one does not need to know the state of the environment exactly.